Methods development for systematic investigation of factors driving outcomes in informal STEM environmental education programs

Youth environmental education (EE) programs often serve as gateway experiences in which diverse audiences engage in informal science learning. While there is evidence that these programs can have positive impacts on participants, little empirical research has been conducted to determine what makes one program more successful than another. To be able to conduct such research, this Exploratory Pathways study will (1) develop and statistically validate ways to measure meaningful outcomes for participants across a variety of programs and (2) test observational methods that will enable research that can determine which elements of program delivery most powerfully influence participant engagement and learning outcomes in different contexts. These efforts will include consultations with diverse subject matter experts from the National Park Service, nature centers, and academia; survey research with participants in afterschool and free-choice EE programs; and observations of EE programs designed to fine tune the measurement of program delivery elements and student engagement. Developing valid and reliable outcomes measures and observational protocols will enable a larger investigation that will specifically address the following research question: What program characteristics lead to the best learning outcomes for program participants in different contexts? This research will result in empirically tested guidelines that will enable educators to design and deliver more effective programs for a wide range of audiences in a wide range of contexts. It is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments.

This effort will refine methods necessary to undertake an unprecedented study (and future AISL Research in Service to Practice proposal) to examine the linkages between pedagogical approaches, participant engagement, and learning outcomes in informal STEM-focused youth EE programs. The larger study will involve systematically observing a large number of programs to assess the use of different approaches and to link those approaches to engagement and learning outcomes through both observation and survey research. In this current study the team will develop and refine crosscutting outcome measures to ensure validity, reliability, and sensitivity by drawing upon the literature and consultation with key stakeholders to develop suites of indicators for subsequent psychometric testing and revision. They will also refine observational techniques for assessing pedagogical approaches through extensive testing of inter-rater reliability. Finally, techniques for measuring participant engagement, incorporating both observational techniques and retrospective participant surveys will be refined.

The work will be conducted by researchers at Clemson University and Virginia Tech, in partnership with the U.S. National Park Service, the North American Association for Environmental Education, and the American Association of Nature Center Administrators. This work represents the first step in a longer research process to determine the "best practices" most responsible for achieving outcomes in a wide range of contexts.